Support for the Participation of Qualified Oceanographers from Developing Countries and Countries with Economies in Transition in International Scientific Meetings

This award provides funds to the Scientific Committee on Oceanic Research (SCOR) in order to assist qualified ocean scientists from developing countries attend various planning workshops and international scientific meetings that are sanctioned by SCOR and of interest to the National Science Foundation. This ongoing project has become the corner stone of SCOR's efforts to provide assistance to marine scientists in the third world and, more recently in Russia and Eastern Europe. All recipients of funds are informed that this assistance is made possible through a grant to SCOR from the US National Science Foundation. The NSF funds are used to broaden international involvement in these activities in the preliminary phases; once the value of an individual's participation is demonstrated, he or she will be invited to join the relevant group and will then be supported from the basic SCOR budget. Project objectives include: broadening traditional participation in ocean-related international scientific meetings to include more scientists from developing countries; enhancing the exchange of detailed regional knowledge or expertise in planning for large-scale oceanographic experiments; and providing greater opportunities leading to the involvement of developing countries in international collaborative programs, such as JGOFS and GLOBEC.